Mathematical Modeling of Heterogeneous Media

The investigator works on three projects: 1) Mechanical
properties of composites and polycrystals. New reliable
analytical and numerical methods are developed to predict the
strength of a wide range of heterogeneous solids. In addition,
detailed results on idealized models are obtained. These serve to
gain understanding of real materials and to test existing methods
in regimes where their accuracy is uncertain. 2) Solute transport
in porous media. New efficient mathematical models are developed
and studied. Because this project is relevant to the
understanding of the transport of contaminants in soils and the
transport of nutrients in bones, the range of potential
applications of the results of this project is wide. 3) Small
particles migration and clogging. Laboratory experiments that
capture the physical mechanisms involved in particles migration
and clogging are studied and mathematically modeled. The goal is
to improve the current understanding of the physical phenomena
that lead to clogging, to provide guidelines for improved
methodologies to pump petroleum and water. The phenomena to be
studied are also relevant in other contexts including sand filters
in water treatment, food grain, pharmaceuticals, bio-mechanical
systems (lungs, kidneys, etc.) and filters. The projects are of
related nature. In all cases, the macroscopic physical phenomena
depend on the microgeometry of the materials. Accordingly, a key
component to their study is to identify the relevant different
length and time scales to formally obtain or construct the
mathematical models.

Guidelines that mathematical analysis can provide in the
understanding of properties of heterogeneous materials is of great
benefit to society. The current availability of computational
power and the maturity that applied mathematics has reached make
mathematical modeling and numerical simulation powerful tools.
The investigator believes that important discoveries are likely to
result from interdisciplinary work; accordingly, he collaborates
and interacts with researchers in other disciplines. Potential
applications of the project include new guidelines on the disposal
of contaminants, the design of improved methodologies to treat
osteoporosis and related diseases, a better understanding of the
processes that lead to loss of bone experienced in the absence of
gravity (during space flights), and improve methodologies for bone
implants. The objective of the educational activities is to
create interdisciplinary learning and research experiences for
students, with mathematics being a central component. To
accomplish that goal, a seminar in interdisciplinary mathematics
is developed.